Image Reconstruction/Recovery in CT and NMR by Convex Projections and Non-Uniform Sampling

This proposal builds upon prior support, which applied the theory of convex projections to reconstruct or recover information from incomplete image data, to develop new and robust image reconstruction/restoration algorithms of a class useful in computerized tomography, magnetic resonance imaging, and ultrasound tomography. Three specific problem areas will be addressed: how to extend earlier research on direct Fourier reconstruction in parallel-beam tomography to the fan-beam case; how to develop optimum sampling strategies in magnetic resonance imaging, especially when time constraints on data acquisition impose a limited-view geometry; and how to develop robust computerized tomography reconstruction algorithms that do not require a fixed projection geometry like the parallel-beam or fan-beam configurations, yet allow reconstruction in a reasonable amount of time. This work should yield significant advances in both computerized tomography and magnetic resonance imaging that will prove useful in medical applications and in industrial applications of nondestructive evaluation and quality control.